Research in Classical and Quantum Gravity

Semiclassical quantum gravity is a bridge between the classical theory of Einstein and a full quantum theory of gravity whose exact nature is not yet known. It therefore applies to phenomena that are both close to the classical theory of gravity, but have implications for the search for a quantum theory of gravity. Several investigations into semiclassical quantum gravity will be carried out. These include an investigation into the pair production of charged black holes. Investigations into the nature of the full theory of quantum gravity will also be carried out. A problem of particular importance is the status in quantum gravity of the singularities which limit the predictive power of the classical theory. This will be investigated using the techniques of string theory. The objective is to establish whether singularities are smoothed out or removed at this fundamental level. A central issue of modern cosmology is the problem of providing a theory of the initial condition of the universe which will make testable predictions for observations today. Since gravitation is the dominant force governing the structure of the universe on the largest scales of space and time, and since the early universe is likely to be quantum mechanical in an essential way, the search for this initial condition is carried out in that branch of quantum gravity called quantum cosmology. A broad based research program will be carried out into the nature of this initial condition, the generalizations of quantum mechanics which may be needed for its interpretation, and the models which allow for comparison of its predictions with observations. The objective of this research is to encapsulate the simplicity of the early universe as revealed by observation, together with the features which arise out of this simplicity, in one physical law.